Computer Science, Engineering, and Mathematics Scholarships

This is a scholarship program for academically talented students in computer science, mathematics and engineering, with a special emphasis on African-Americans. Recruitment efforts involve pre-college programs such as Upward Bound and the Packard Program, along with area community and two-year technical colleges, and students enrolled in CSEMS areas. Objectives of the program include: (1) increased representation of persons from this group among students studying for undergraduate and first graduate degrees in the above disciplines; (2) increased retention through graduation of participants; (3) development of a sense of belonging in the represented disciplines; (4) involvement of participants in a peer support network; and, (5) provision of mentoring and counseling opportunities to assist participants in coping with college life and preparing for graduate and professional opportunities. Scholars are formally recognized during the opening convocation in the fall and at the Academic Awards Day in the spring.